Hands-On Universe Informal Science Education Project

9552522 Pennypacker Lawrence Berkeley Labs developed a CD containing educational materials, staff training and the software necessary for informal science education centers to offer to middle school students one- hour sessions, multiple-day workshops, and ongoing participation in a drop-in computer lab. Hands-On Universe (HOU) is an active science education program that provides participants access to observing time on professional telescopes through the use of a personal computer and the Internet. The CD contains: exploration experiences and challenge games; resource material including images from other national labs, descriptions and animations of related topics, and astronomical catalogs; image processing software; a telecommunications package to interface with HOU telescopes and support network, the Internet, and World Wide Web; staff training material. The target audiences are youth in grades three through high school, and adults.